Creation of an Applied Master's Program in Materials Physics

0075372
Galloway

The Department of Physics at Southwest Texas State University develops and implements a science masters program in Materials Physics that will significantly increase the hands-on experience of the degree candidates and train them in areas of interest to the regional semiconductor industry. The program includes new laboratory-focused courses, research internships within the university and co-op type industrial internships.

The university is located in the heart of a high-technology industrial community as well as a geographical region rich in underrepresented minority candidates in the sciences and engineering. The project can potentially serve as a model for graduate applied physics education.